Engineering Education and Laboratory Enhancement: Leading Virtual Manufacturing to Reach Reality through Network Based Manufacturing

Engineering - Other (59)

This project focuses on designing, implementing, and further enhancing a set of network based manufacturing courses with topics supporting automation, production, and advanced manufacturing. The targeted goals of the project include the establishment of an e-Manufacturing Laboratory to support the foundation courses of the e-Manufacturing program. Through involvement with the e-manufacturing laboratory students participate in activities of remote monitoring, diagnosis, and control of distributed manufacturing operations. Additionally, potential injuries and safety hazards often associated with traditional manufacturing laboratories will be reduced through virtual exposure of students to equipment. Industrial, Electrical and Computer Engineering majors are benefiting from this new curriculum enhancement.